Japan Long-Term Visit: The Role of Polyamines in DNA Synthesis and Cell Division

This award will support Dr. Rakesh Minocha of USDA Northeast Forest Experiment Station to work for eight months in the lab of Dr. Atsushi Komamine of Tohoku University, Sendai, Japan. They will collaborate in studying how polyamines regulate the cell cycle of plants. The effects of polyamine depletion on DNA synthesis and cell proliferation, and the subcellular site (cytoplasmic vs nuclear) of action of polyamines in DNA synthesis, will be investigated. Polyamine metabolism has an essential role in the growth and development of plants. Dr. Komamine's expertise with plant systems, together with the availablity of synchronously dividing cell culturesof the Madagascar periwinkle which have been developed in his lab, will present Dr. Minocha with an excellent opportunity to broaden her present experience with polyamines in animal systems.